New Frontiers in Nuclear Astrophysics

Nuclear physics processes are especially important for understanding the mechanisms behind the majesties of the night sky. Stars are powered by fusion reactions, supernova explosions produce and disperse chemical elements, and the remnants of these explosions accelerate high-energy particles. A special way forward is possible using neutrinos, tiny particles with zero charge, almost no mass, and only weak interactions. Neutrinos are abundantly produced in many astrophysical objects. Detecting neutrinos is very difficult, but doing so can reveal physical conditions deep within those sources, beyond the reach of observations with light. The PI leads a broad program of theoretical work in neutrino astrophysics designed to lead to breakthroughs in understanding astrophysical objects and neutrino properties. As part of STEM Workforce development, the PI trains junior scientists on cutting-edge technical and career skills, including the effective, ethical use of artificial intelligence tools. The PI is a leader in Public Engagement on topics of broad interest and is also active in STEM Education, including through teaching computational physics and through training other scientists to be better at delivering broader impacts themselves.

The PI’s ambitious research program has three thrusts: solar neutrinos, supernova neutrinos, and higher-energy neutrinos. The central tenet of this project is that a broad, integrated program in theoretical neutrino astronomy will powerfully address core questions in nuclear physics while significantly advancing the science of multi-messenger astronomy and beyond the standard model physics. For solar neutrinos, long-term outcomes could include significantly reduced detector backgrounds and thus improvements in the precision of signals from existing detectors, along with a new probe of the neutrino-argon cross section needed for the success of the Deep Underground Neutrino Experiment (DUNE). For supernova neutrinos, these could include facilitating discovery of the Diffuse Supernova Neutrino Background (DSNB) and a new search for isolated neutron stars using the Vera Rubin Observatory. For higher-energy neutrinos, these could include improved probes of atmospheric neutrinos and developing new particle-identification techniques for multiple neutrino experiments. Artificial intelligence techniques will be used throughout these three thrusts to reduce backgrounds and isolate rare signals. Individually, the sub-projects could each have a very high impact. Together, they could greatly advance neutrino astronomy, nuclear astrophysics, and more.